NSF Minority Graduate Student Travel Award

This action funds an NSF Minority Graduate Student Travel Award, one of the supporting activities of the NSF Minority Postdoctoral Research Fellowships.

Three visits will be made to potential host institutions for postdoctoral training in conservation biology and the study of riperian plant species. Destinations include the University of Nijmegen in the Netherlands, the University of Oregon, and the University of Montana.